Computation and Modeling of Insect Flight

Wang
0075510
The investigator and her colleagues combine modern
techniques of computation and theoretical modeling to complement
current experimental research in insect flight. These
computations reveal the three-dimensional flows around an elastic
wing that mimics the flapping motion of insects. The
computational results also establish a basis for developing
mathematical models of vortex shedding in unsteady flows
(traditionally described by the unsteady Kutta condition). A
solution of this longstanding problem in fluid mechanics would
help to lay the foundation for a general theory of flapping
flight.
Insect flight is fascinating in its own right, but more
generally, it can provide insight into other fluid mechanical
problems that involve interactions between dynamic boundaries and
highly unsteady viscous flows. The investigator explores how
Nature solves the problem of insect flight. The lessons learned
from insect flight are applicable to other physical and
engineering systems where there is a tight coupling between a
vortex wake and the oscillating body that generated it. Examples
range from the famous devastating Tacoma Narrows bridge accident
to our everyday experience of the dynamics of a piece of falling
paper and the rising of bubbles in fluids. Finally, understanding
the aerodynamics of insect flight can provide a new paradigm in
designing micro-air vehicles.